Planning and Implementation for Change in Scope, Sequence, and Coordination of Secondary Science

The National Science Teachers Association proposes to initiate steps to produce a major reform in the scope, sequence, and coordination of secondary science education in the United States. The first step in this endeavor is to conduct three meetings which will determine the framework for this reform. The first meeting is the Preplanning Meeting of 15-20 leaders from science education, scientific, and engineering organizations. This group will address the opportunities and problems associated with a change in secondary science instruction. The group will establish the agenda for the second meeting, the Strategy Conference, which will convene in July, 1989. The Strategy Conference, of approximately 100 participants, will garner broad support and establish an implementation plan for the reorganization of secondary science. The Conference will also identify pilot sites to begin the reform effort. Conference proceedings will be widely distributed. The third meeting is the Project Planning Meeting which will consist of approximately 15 participants including education officials from each of the school districts which will serve as pilot sites. This meeting will set the agenda and plans for organizational reform beginning with the pilot districts in 1989-90. All three meetings will be thoroughly documented and evaluated. Cost sharing--$16,025 or 15% of the total cost of this project.